GP-IMPACT: ICE-AGE: Integrating Continuous Experiential Activities for Geoscience Education

Part 1
Recruiting undergraduate students to geoscience majors in
Tennessee is severely hampered by the fact that most Tennessee high schools do not offer
a geoscience class. As a result, students tend to graduate high school and enter college
with no real idea that geoscience is a potential major. Project ICE-AGE will engage with
high school students by exposing them to the geosciences in the context of core science
classes. First, a series of "Lessons-In-A-Box" will be designed to meet state
educational standards in the core sciences of biology, chemistry, and physics, but drawn
explicitly from interdisciplinary geoscience fields. These lessons will be tested with
visiting school groups at a campus museum, introduced to area teachers through
workshops and educational conferences, and circulated by the Knox County Public
Library System. Second, the PIs will collaborate with three groups of high school students,
including two that consist primarily of underrepresented minorities, on authentic
scientific research. This work expands a project with one high school that has resulted in
participation of students in writing a peer-reviewed paper, and four student-led
presentations at regional and national scientific meetings. Finally, PIs will create two new
classes for future teachers in culturally responsive geoscience education and research
methods in science. Taken together, PIs expect to introduce area high school students and
future teachers to the geosciences in such a way as to enhance their required learning
objectives and expose them to the potential for further study and employment in geology
and related fields.

Part 2
The project proposes to develop and deploy an integrated set of
programs that will engage high school students along a spectrum from one-day lessons
that will contact large numbers of students, to intensive, year-long research projects that
will involve a smaller number of students. PIs will also train pre-service STEM teachers
in the use of active learning techniques using geological concepts. PIs will specifically
work with high school populations that are enriched in underrepresented minorities, in
order to address the low diversity of current geoscience students and practitioners. PIs
will actively promote these programs to teachers around the country via teachers'
workshops, STEM education conferences, and professional geoscience conferences.
Finally, this project will produce scholarship in the fields of education and geoscience.
PIs expect that these efforts will expose ~165 high school students to authentic
geoscience research and at least 1000 students to Lessons-In-A-Box. The project will also help to
train ~90 pre-service teachers, 6 graduate students, and 1 undergraduate in teaching
geoscience and generating culturally responsive lesson plans. This project will also lead
to closer collaboration between faculty in the University of Tennessee's Departments of
Theory and Practice in Teacher Education, and Earth and Planetary Sciences. In the long
term these collaborations will help EPS faculty to improve teaching techniques for
undergraduates and to train more pre-service teachers in geoscience.